Management of West Coast Winch Pool 2018-2022

Funding is requested for Scripps Institution of Oceanography who maintains the University-National Oceanographic Laboratory System (UNOLS) West Coast Winch Pool for the benefit of U.S. ocean scientists. The winch pool is a shared-use facility that procures, maintains, upgrades, and makes available a variety of portable oceanographic winches that are used by scientists aboard a broad range of research vessels. The pool currently includes a deep-sea traction winch, three light-duty winches, four general purpose mooring spoolers, one large mooring spooler, a double-barrel capstan, and a tensioning wire spooling system. Winches are shared following community-based scheduling methods run by UNOLS.

Broader Impacts
The principal impact of the present proposal is under Merit Review Criterion 2 of the Proposal Guidelines (NSF 13-589). It provides infrastructure support for scientists to use the vessel and its shared-use instrumentation in support of their NSF-funded oceanographic research projects (which individually undergo separate review by the relevant research program of NSF). The acquisition, maintenance and operation of shared-use instrumentation allows NSF-funded researchers from any US university or lab access to working, calibrated instruments for their research, reducing the cost of that research, and expanding the base of potential researchers.